Genetic Analysis of Complex Adaptive Traits

Currently, there is not enough good data on what types of genetic
changes occur when organisms evolve an adaptation. This data can
only come from high-resolution genetic analyses of natural
adaptations. The fruitfly, Drosophila sechellia, is uniquely suited for
such an analysis as it can be manipulated genetically and has an
indisputable adaptation. A close relative of D. melanogaster, a
genetic model species, D. sechellia has adapted to consuming the
fruit of Morinda citrifolia, a fruit that is toxic to other fruitflies. The first
two experiments in this grant are in-depth genetic analyses of D.
sechellia's adaptation. The genes involved in this adaptation will be
precisely mapped and their effects estimated. This data is a
necessary first step towards the identification and cloning of the
adaptive alleles. The final experiment will determine the relative
importance of standing genetic variation versus new mutations in the
evolution of an adaptation by artificially evolving resistance in related
species of fruitflies.
The proposed research will help us understand how organisms
genetically change in response to environmental change.
Specifically, this grant will impact our understanding of how insects
evolve resistance to plant produced pesticides and will give insight
into how insects choose the plants upon which they feed.